REU/RET Site in Nanomaterials

Non-technical summary

The University of Minnesota (UMN) will host a Research Experiences for Undergraduates (REU) site that brings 10 talented undergraduates from a nationwide pool of applicants for an intensive 10-week research experience that includes extensive training and development of career-building skills. Each participant pursues an independent research project within the laboratory of a Materials Research Science and Engineering Center (MRSEC) faculty member and delivers a poster and a formal oral presentation at the program’s conclusion. The RET component draws six middle and high school teachers from the greater Twin Cities for a six-week research experience and 25 additional teachers for a three-day RET-led workshop. RET participants have their own research projects and work to develop and disseminate standards-based, crosscutting, engineering laboratory activities for middle and high school classrooms. The goal of the REU/RET site is to train the next generation of science and engineering professionals while increasing participation of traditionally under-represented groups. The MRSEC REU program expands its extensive network of four-year colleges, Tribal Colleges and Native American Serving Nontribal Institutions, Historically Black Colleges and Universities, Hispanic-Serving Institutions, and Community Colleges to provide high-quality research experiences in MS&E, primarily to students from undergraduate institutions with limited research opportunities, and to high school teachers from the Twin Cities.

Technical summary

The REU Site brings 10 talented undergraduates from a nationwide pool of applicants to the UMN campus for an intensive 10-week research experience that includes extensive training and development of career-building skills. The UMN MRSEC REU Site enhances the overall awareness and self-expectation of the participants, while increasing their knowledge and appreciation of Materials Science and Engineering (MS&E). This is particularly important for undergraduates from two-year and four-year colleges and minority serving institutions (MSIs), who do not have extensive research experience, and who have little or no exposure to MS&E. The UMN MRSEC comprises two Interdisciplinary Research Groups (IRGs) addressing pressing problems over a wide range of hard to soft materials: IRG-1, Ionic Control of Materials and IRG-2, Mesoscale Network Materials. Each IRG integrates the six basic elements of materials science and engineering – synthesis, theory, structural characterization, property evaluation, processing, and applications – required for effective innovation in materials research and development. MRSEC faculty and students are based in five different science and engineering departments, assuring a particularly broad and interdisciplinary experience for all participants. The research advisors represent an appealing blend of junior, senior, and mid-career faculty; all are acknowledged leaders in their fields and have proven records of mentoring undergraduate researchers.